AMP: NEW YORK CITY ALLIANCE FOR MINORITY PARTICIPATION

The City University of New York (CUNY) is an academic network of nine senior colleges, seven community colleges, a 4-year technical college, a graduate school, a law school and two medical schools. The network is geographically distributed throughout the entire city, with a total residential population of more than seven million. The New York City Alliance will consist of twelve campuses within CUNY, comprising bother 2 year and 4-year colleges, working together with private colleges, members of the business community and national laboratories. The initial CUNY college partners will be four senior colleges (Brooklyn College, City College, Hunter College and Lehman College), a 4-year technical college (New York City Technical College) and seven community colleges (borough of Manhattan Community College, Bronx Community College, Hostos Community College, Kinsgborough Community College, La Guardia Community College, Medgar Evers College ıwhich has both 2- and 4-year programs! and Queensborough Community College). The principal project activities will involve undergraduate science, engineering and mathematics (SEM) education, focusing on the points in students' undergraduate experience which are most likely, without intervention, to precipitate a decision to drop out of the science and engineering pipeline. The transitions from 2- year to 4-year colleges and into graduate school will be specifically addressed by AMP project activities. Although not included in the seven proposed AMP activities, the transition rom high school to college is currently served by as number of existing programs involving the partner colleges and will be coordinated under AMP auspices. The AMP activities will bring about wide-scale deployment of programs proved in pilot projects; complement related activities funded by state, private and other federal sources' produce a significantly greater degree of coordination among the CUNY partners; and bring greater involvement of outside partners, private colleges, government laboratories and industry. Our goal will be to create a "seamless whole" of interventions at the undergraduate level that respond to each of the factors that impled minority student success.